International Symposium on the Molecular Biology of Hydrogenase

The Second International Symposium on Hydrogenase will be held September 19th to the 23rd, 1988 at Unicoi, a conference Center in Northern Georgia. The last formal conference was held in 1985 and substantial progress has been made in the ensued time. The conference is being chaired by Dr. Leonard Mortenson. The organizing committee is composed of Drs. Harry Peck, Mike Johnson and Jean LeGall, all at the University of Georgia. Other than reporting the current status; a determined effort will be made to initiate ways to put together a data base of information. A cross fertilization of ideas and joint experimentation will be encouraged. The enzyme, hydrogenase, is essential for the survival of anaerobic organisms since it couples the oxidation of key reduced electron carriers to the reduction of protons, and in turn the H produced is used as an electron source by other organisms, such as the electron source for CO and sulfate reductions by methanogens and sulfate reducing bacteria, respectively. In many organisms the function of the hydrogenase is known but in other organisms the function is unclear. It appears hydrogenase is required to use the H released during nitrogen fixation. Hydrogenase also functions in a variety of procaryotes that are important in geochemical regulation. It is an important enzyme and a meeting dedicated the elucidation of its role in nature is strongly recommended. These funds will be targeted for young investigators.